Oceanographic Technical Services 2006 - 2008, R/V Pelican

0612003
Rabalais
This 3-year award to Louisiana Universities Marine Consortium provides support for technical services during NSF-funded programs on R/V Pelican, a 105 general purpose research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. LUMCON will provide one shipboard technician on each cruise of R/V Pelican to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***